Gender Differences in Wages

The research described in this proposal will significantly enhance our understanding of the ways in which gender differences in wages develop over time, with particular attention here to the onset of this process. A relatively new and comparatively rich data set with characteristics not elsewhere available (the 1979 youth cohort from the National Longitudinal Survey), combined with additional information about the organization and industry in which the respondent works, will be processed and analyzed. Rather than study individuals at one point in time or individuals at repeated and regular intervals, this research will focus on the actual duration of an employee's tenure with each of their employers and will study the relative influence of a variety of factors on the change in wages that occurs during that tenure. Among the factors to be studied that are not typically considered are firm-specific tenure, a theoretically crucial variable in the context of human capital and transaction theoretical perspectives, the gender mix specific to the occupation and industry category associated with an employer, and other firm or industry characteristics such as the extent of unionization or the degree of product-market dominance associated with the employer. Alternative theoretical expectations about the sources of gender gaps in wages will be compared with the statistical results.